Development of the Modern Analog Technique and the Planktonic Foraminifera Data Base for Reconstructing Sea Surface Temperature

Abstract ATM-9709769 Prell, Warren L. Brown University Title: Development of the Modern Analog Technique and the Planktonic Foraminifera Data Base for Reconstructing Sea Surface Temperature This award supports a project designed to finalize, document and provide the best possible, internally consistent, global data base of modern planktonic foraminiferal calibration data for reconstructing past ocean environments and reassessing the original CLIMAP SST results. Investigators will also complete and disseminate and taxonomic users guide for the data base and the software and user's manual for the series of MAT programs and their environmental data and complete the reconstruction of the seasonal SST and the thermocline structure of the LGM Indian Ocean.